AIR: Next Generation CdTe Photovoltaic Technology

The proposed research will strengthen the CdTe PV innovation ecosystem. CdTe PV is now economically viable in many applications and suitable for gigawattscale implementation. The project will utilize CSU's state-of-the-art deposition system to pursue two separate routes to higher-efficiency manufacturing-friendly cells: (1) higher voltage from a new device structure that employs a Cd1-xMgxTe electron-reflector layer to reduce electron recombination, and (2) higher current with a larger band-gap CdS layer achieved by the incorporation of plasma activated oxygen species. The project will develop novel semiconductor alloys, novel processing methods, novel defect-passivation approaches, and novel device structures. At the same time, detailed understanding of the defects, interfaces, and the device physics of the advanced devices will be developed.

The most significant broader impact is the production of clean energy globally on an unprecedented scale. This will provide a major benefit for the U.S. economy and will create thousands of well-paying jobs in the U.S. It builds on the success of the CdTe PV industry, which now has the lowest cost-structure and largest production of any U.S. PV technology. . It also builds on the technology-transfer experience of the PI, co-founder of Abound Solar which has grown to 370 employees with current manufacturing at 65 MW/Yr and a near term target of 200 MW/Yr. This project will also provide well-trained students for the photovoltaic industry, which is growing rapidly and requires a highly skilled workforce. The PV-training approach at CSU is strongly team based: students from different disciplines work closely with each other, with engineers from industry, and in many cases with students at other universities.